Nonlinear Partial Differential Equations

Abstract
Evans

I will continue my ongoing research in nonlinear PDE,
with emphasis on these topics: (i) PDE methods for Hamiltonian dynamics:
The goal here is to use the (nonsmooth) solution of the appropriate cell
PDE to study Hamiltonian dynamics on the Aubry-Mather set, for problems
with many degrees of freedom. (ii) Regularity for optimal Lipschitz extensions:
The boundary value problem for the ``infinity-Laplacian'' is a highly
degenerate nonlinear PDE, which is extremely interesting since
it is a sort of Euler-Lagrange equation for a calculus of variations
problem ``in the sup-norm''. I intend to study carefully the possible
regularity of weak solutions. (iii) Relaxation approximations for Hamilton-Jacobi
equations: Formal asymptotics strongly suggest that perturbing a Hamilton-Jacobi
PDE by a wave operator, with large enough wave speed, should in the limit
produce a viscosity solution. A proof of this would dramatically extend
the applicability of viscosity solution methods, to cover approximations
with no maximum principle. (iv) Mass transfer problems:
I continue to be interested in PDE methods for Monge-Kantorovich mass
transfer problems, especially those occurring on fast time scales,
coupled with slower dynamics.

Partial differential equations (PDE) occur as mathematical
descriptions of an extremely wide variety of physical and other phenomena,
and nonlinear PDE are especially difficult, since they do not permit us to decompose
complicated solutions into a superposition of simpler solutions. Many important
nonlinear PDE do however have a variational structure, meaning that
they correspond to a sort of optimization principle. The overall
goal of the calculus of varitations is finding ways to exploit these variational principles,
to help us understand the nature of solutions to the corresponding nonlinear PDE.
In this project I will (mostly) continue to study several important classes of variational
problems, to understand more about (i) certain nondissipative dynamical systems,
(ii) optimal extension problems, (iii) wave-like approximations to dissipative
phenomena, and (iv) optimal mass reallocation problems.